Building a Community of Science Teacher Educators to Prepare Novices for Ambitious Science Teaching

There is a growing consensus among science teacher educators of a need for a shared, research-based vision of accomplished instructional practice, and for teacher education pedagogies that can effectively prepare preservice science teachers to support the science learning of students from all backgrounds. This conference will bring together a group of teacher educators to focus on preservice teacher education and a shared vision of instruction called ambitious science teaching. This conference is a critical first step toward building a community of teacher educators who can collectively share and refine strategies, tools, and practices for preparing preservice science teachers for ambitious science teaching. The conference has two goals. The first goal is to develop a shared vision and language about effective pedagogy of science teacher preparation, focusing on ambitious science teaching and practice-based approaches to science teacher preparation. The second goal is to initiate a professional community that can generate, test, revise, and disseminate a set of resources (curriculum materials, tools, videos, models of teacher educator pedagogies, etc.) to support teacher educators. The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.

There are immediate and long-term broader impacts that will result from this conference. One immediate impact is that this conference will set forth an actionable research agenda for the participants and the field to take up around ambitious science teaching and practice-based teacher education. Such an agenda will help shape new work, involving institutional collaborations,teacher preparation programs, and national organizations. Such an outcome has the potential to immediately impact the work of the conference participants and their own teacher preparation programs. In the long-term, this conference provides an opportunity for the participants to consider how to use ambitious science teaching to address issues of equity and social justice in science education and schools. In addition, the broader impacts of this conference will be to spread a vision of science teaching and practice-based teacher preparation in which students' ideas and experiences are the raw material of teachers' work.